Student Fellowships for Participating IEEE 7th International Symposium on BioInformaitcs and BioEngineering

IEEE 7th International Symposium on Bioinformatics & Bioengineering (IEEE BIBE 2007) will be held at Harvard Medical School Conference Center, Cambridge - Boston, Massachusetts, USA, October 14-17, 2007. IEEE BIBE 2007 hosts keynote sessions, workshop keynote sessions, cutting edge research sessions, special sessions, workshops, and tutorials. The goal of the project is to financially support international and domestic students to attend IEEE BIBE 2007. The students such as underrepresented minorities, women, and persons with disabilities will be able to attend all technical events such as tutorials, workshops, research sessions, special sessions, keynote sessions and poster sessions. The students will learn advanced knowledge in bioinformatics and bioengineering to continue to do strong research in them in the near future. The support will maximize learning outcomes of IEEE BIBE and maximize research outcomes of IEEE BIBE 2007. Because students will be major future research experts to develop new techniques in bioinformatics and bioengineering, it is necessary to provide them with the best chances to improve themselves.